Online Competitive Algorithms

Optimization problems that arise in practice are often inherently
online; that is, the input data is not available prior to
computation but, instead, is given as a sequence of requests
each of which must be served before the next one is received.
A classical example is the caching problem in two-level memory
systems. Modern computer architectures enhance memory performance
by storing frequently accessed data items in a cache, which is
a small buffer memory. Memory locations stored in the cache
can be accessed quickly. Requests to memory locations that are
not in the cache are called faults or misses, and take much
more time. After each memory access, an online caching algorithm
needs to decide whether to put the requested item in the cache,
and if so, which item to evict from the cache. The objective
is to minimize the number of cache faults.

Due to incomplete information, online algorithms cannot, in general,
compute optimal solutions. This brings up the issue of performance
evaluation: how do we tell good algorithms from bad ones? One measure
of the quality of online algorithms is their competitive ratio,
defined as the maximum, over all request sequences, of the ratios
between the solution computed by the online algorithm and the optimal
(offline) solution. Thus, an algorithm with competitive ratio, say,
1.5, always computes a solution that is within 50% of the minimum.

This research deals with the competitive analysis of online algorithms.
Several research directions are being explored. The first direction
is to study general techniques for the design and analysis of online
algorithms. Here, the most promising ideas include the
work-function algorithm (and its extensions) and the primal-dual method.
Both of these techniques, as well as some other, have been successfully
applied to specific online problems, but the mechanism behind their
success is still poorly understood, and they still require an in-depth
study to determine their applicability to other problems. Another
direction is to study several extensions of the competitive analysis,
including access graphs (for caching), diffuse adversaries, loose
competitiveness and resource augmentation. This work focuses on some open
problems related to these models, on adapting these models to other
online problems, and on designing new problem-specific models. The
investigator is also continuing his work on several classical
problems in competitive analysis, including the k-server
problem, several versions of caching and scheduling problems,
the k-median problem, and other. The main goals of these efforts
are to develop efficient competitive algorithms for these problems
and to establish matching lower bounds on the competitive ratios.